International Symposium on Differential Geometry, August 2009, Rio de Janeiro, Brazil

Abstract

Award: DMS-0907300
Principal Investigator: Wolfgang Ziller

This award will provide support for travel from the US to Brazil
for 20-25 junior mathematicians, with emphasis on graduate
students and recent Ph.Ds, to attend the International Symposium
on Differential Geometry, which will take place in August 2008 at
the Institute for Pure and Applied Mathematics (IMPA) in Rio de
Janeiro. Lectures at the Symposium will present recent
developments within several areas of geometry, particularly those
associated with Marcos Dajczer, a member of the IMPA faculty who
has been a leader in the subject.

The conference will provide a rich environment in which US
graduate students and recent Ph.D.'s can learn about new
developments in geometry, There is a tradition of interaction
between mathematicians in the US and those in Brazil, and a goal
of this grant is to foster new interactions between younger
mathematicians and their Brazilian counter parts. Participation
by women and minorities will be actively sought and encouraged.

The conference web site is
http://www.impa.br/opencms/pt/eventos/store/evento_0903.